Polarimetric Emission Pyrometer for Temperature Measurement

The design, construction and testing of a Polarimetric Emission Pyrometer (PEP) will be undertaken. The PEP will measure the spectral emissivity and optical constants of solid or liquid surfaces in real-time concurrent with the measurement of the apparent temperature, and consequently provide a dynamic measurement of the true thermodynamic temperature. The device is sample independent and works extremely well on specular and near- specular surfaces. In addition, the errors in the emittance measurement are temperature independent. Initially the device will cover a temperature range of 800 - 2500 K. This would probably be the first absolute thermodynamic temperature and optical property measuring device available.